A Common Chemistry Telecourse

The University of South Florida will produce videotaped lessons on chemistry for the use of preservice elementary school teachers and inservice middle school and school teachers who are not adequately prepared in chemistry. Three tapes, focusing on density in solids, liquids, and gases will attempt to convey fundamental science concepts without extensive use of mathematics. A fourth tape will provide material on effective instructional methods for the benefit of the instructors using the three instructional tapes. These tapes will be distributed to inservice teachers of grades five through eleven in southern Florida and to preservice teachers in the Suncoasts Area Teacher Training program. These teachers will be asked to complete pretests and posttests on the scientific content of the tapes and feedback on the effectiveness of the lessons. In addition, the tapes will be broadcast on channel 16 in Tampa (WUSF), and efforts will be made to evaluate their impact on the viewers.